Student and Junior Faculty Travel Support for Engineering Sustainability 2011: Innovation and the Triple Bottom Line

The Mascaro Center for Sustainable Innovation at the University of Pittsburgh and the Steinbrenner Institute for Environmental Education and Research at CMU will host a conference entitled “Engineering Sustainability 2011: Innovation and the Triple Bottom Line.” The conference will be held in the David L. Lawrence Convention Center in Pittsburgh, PA, April 10-12, 2011. About 320 participants are expected. The funds will be used to provide travel support for up to 35 students and junior faculty. This conference will bring together engineers and scientists from academia, government, industry, and non-profits to share results of cutting edge research and practice directed at the following themes: green building design and construction; greening the indoor environment; sustainable distributed power for the built environment; sustainable urban drinking water, stormwater, and wastewater infrastructure; design of more sustainable transportation grids; using principles of sustainability to foster innovation and new product design.